Oceanographic Instrumentation R/V CAPE HATTERAS

0000203
Ustach
This award to Duke University will provide instrumentation for oceanographic research for use on R/V Cape Hatteras, a research vessel operated by the Duke/UNC Oceanographic Consortium as part of the University-National Oceanographic Laboratory System research fleet. Specific instrumentation to be acquired includes a replacement deck unit for the CTD, a new carousel unit for water sampling, and two oxygen sensors and related shipboard instruments to allow continuous measurement of dissolved oxygen during CTD lowerings. The shared-use instrumentation supported here will assist marine scientists conduct studies, particularly in the western North Atlantic Ocean, during 2000 and future years.
***